Ionic Conductivity of Gel Prepared Silicates

This research will investigate the transport properties, in particular ionic conductivity, of gel-derived alkali silicate materials. This investigation lies at the interface between chemistry and materials science. High ionic conductivity requires high alkali concentrations. The sol-gel process involving alkoxides and salts is one way of incorporating high concentrations of alkali into silicates. The sol-gel process is a low temperature approach to glass formation, where a mixture of alkoxides is allowed to hydrolyze and polymerize to form an oxide network. The oxide network condenses in the presence of the solvent which can be removed from the pores by natural evaporation. The microporous gel which remains after drying is called a xerogel. Preliminary studies show that the microporosity has an effect on transport properties and, consequently, ionic conductivity. Three aspects of xerogels affecting transport properties are being investigated: 1) the effect of microporosity and pore size, 2) the contribution of proton conductivity, and 3) effect of phase separation in a microporous solid. Principle instrumentation for this project includes complex impedance spectroscopy, nitrogen sorption analysis, Fourier transform infrared spectroscopy and solid state magic angle spinning nuclear magnetic spectroscopy.